Birational Geometry and Rational Connectedness

This project concerns birational geometry of complex varieties
and the study of rationally connected varieties. The main
objective is to study spaces of rational curves on rationally
connected varieties, with the goal of constructing new birational
invariants of these varieties and determining the relationship
between these varieties and unirational varieties. The secondary
objective is to develop further some of the techniques and tools
of algebraic geometry: to develop techniques for determining when
moduli stacks are rationally connected, to construct and study
new compactifications of the space of smooth rational curves in
projective space, and to refine the Behrend-Manin stratification
of the Kontsevich moduli stack so that it detects mutliple covers.

Systems of polynomial equations in some collection of variables
arise in every branch of mathematics, science and engineering.
Determining the solutions of these systems of equations is of
paramount importance. "Unirational varieties" precisely correspond
to those systems of equations where the set of solutions is most
easily described -- the set of solutions is the set of all outputs
of some sequence of polynomials with arbitrary inputs. So it is
very important to recognize which systems of equations correspond
to unirational varieties. From the point of view of geometry, a
closely related notion is "rational connectedness". This notion
is far simpler to recognize in practice. Potentially both notions
are equivalent. If one could prove that both notions are
equivalent, this would give a simpler way to recognize which
systems of equations correspond to unirational varieties. The
investigator intends to continue his research of this problem.